Mean curvature flows in higher codimensions

ABSTRACT

MEAN CURVATURE FLOW IN HIGHER CODIMENSIONS

The mean curvature flow is the gradient flow of the volume
functional of submanifolds. The analytic nature is a
parabolic system of nonlinear partial differential equations whose stationary
phase corresponds to minimal
submanifolds. Minimal hypersurfaces and mean curvature flows of
hypersurfaces have been studied extensively for decades but many
applications in mathematical physics and topology call for
understanding of the higher codimensional case. This project
proposes to embark on a systematic investigation
of minimal submanifolds and mean curvature flows in higher codimensions. Three
immediate goals are to understand the
minimal surface system in higher codimension, the Lagrangian mean curvature
flow in Calabi-Yau manifolds and
the deformation of maps between Riemannian manifolds by the mean curvature
flow.

Minimal surfaces are like soap films, they are surfaces of least
area. The mean curvature flow is an evolution process which movesT
a surface in space in such a way that its area is decreased most
rapidly. This is a very natural yet highly nonlinear process and
it models physics phenomena such as the motion of an interface in
forming
metallic alloys. Understanding the behavior of this evolution is important for
simplifying and smoothing complicated surfaces in the
most efficient way. This process, as a geometric evolution equation, tends to
deform a geometric object to its optimal shape. A goal of
this project is to apply this process to study certain special surfaces in
Calabi-Yau manifolds, the spaces of string theory. It is believed
that underlying structures of Calabi-Yau manifolds are encoded in
these special surfaces, called special Lagrangians. The success of
this proposal will have important impact on image processing,
material science, mathematics physics and
other nonlinear problems.